Proteus Media Project Phase I

This proposal supports the first step in the Proteus Media Project, a project to design and build a computer-assisted political war-game. In particular, the Proteus gaming environment will be designed to provide participants with experience in political, economic, operational, cultural, and temporal dimensions of post-war Iraq. This first phase will develop a preliminary design for the system. The Proteus system will address issues in temporal reasoning and adaptive agents.